RATE: Russian-American Tomography Experiment

A cooperative program combining experimental ionospheric observations with mathematical theory and modeling is proposed involving the Atmospheric Sciences research group at the MIT Haystack Observatory and Russian scientists at Moscow State University and the Polar Geophysical Institute in Murmansk. The Russian participants have developed the theoretical methods and radio receiving equipment for phase-difference ionospheric tomography and have performed preliminary experiments in Russia which have provided an initial verification of these techniques. In order to calibrate the resolution and accuracy of the method, however, experiments done in conjunction with simultaneous direct ionospheric observations are needed. A cooperative research program between scientists and engineers in the US and Russia is proposed to carry out a series of tomographic experiments in 1993 along the N-S meridian through Millstone Hill, Massachusetts. In conjunction with direct ionospheric observations made by the US participants with the Millstone Hill incoherent scatter radar, an array of Russian-built ground-base satellite receivers will be deployed to investigate ionospheric structure using tomographic techniques. The joint research will serve to both calibrate and improve the tomographic deconvolution using the phase-difference technique and will address the ability of radio tomography to image small-scale ionospheric structures, beyond the resolution capability of the radar.